Transitional Support Pending A Public Bureau of the Census Shared Database Facility for SIPP

SIPP ACCESS has created, designed and maintained a national facility for shared use of a database on the 1984 Survey of Income and Program Participation (SIPP). The record of work by researchers across the United States using the SIPP Access facility shows that great economies in research can be achieved by using its capabilities. Continuing that facility and effectively transferring capabilities of the facility to a permanent site in the Census Bureau are the objectives of the current grant. An evaluation that will communicate insights from the SIPP ACCESS prototype to others with complex data management tasks will also be part of the project. It will discuss: 1) the sources of efficiency in the SIPP ACCESS system, 2) management of a complex database, 3) data enhancements and their value-added, 4) relational databases management systems, query languages and strategic thinking about preservation of data in a dynamic environment, 5) training, information overload and the learning curve, and 6) the implications of the SIPP ACCESS System for data and information systems in the 1990s. A revised version of PC-SIPPTEST, a highly innovative personal computer version of the project which has been tested at six beta-test sites in the past year, is to be produced.